Geometry and Topology of Riemannian Manifolds

9971648
Grove
The project will deal with global problems in differential geometry
and related areas. Special emphasis will be devoted to the roles of
symmetry and of singular spaces in the geometry and topology of
Riemannian manifolds. In particular, one of the guiding principles
behind the project is: ``Classify manifolds with positive or non-negative
curvature and large isometry groups.'' This naturally includes the study
of manifolds with ``rotational symmetry,'' i.e., manifolds with one-
dimensional orbit spaces. This investigation is also aimed at producing
new examples of manifolds with positive or non-negative curvature, a
problem of notorious difficulty. Orbit spaces in general provide
important examples of the type of singular spaces that arise in the study
of manifolds with lower curvature bounds. The investigator's efforts
related to singular spaces are focussed on stability and inverse
stability problems. Answers to such problems will be instrumental in the
deeper understanding of the structure of Riemannian manifolds in general.
Riemannian manifolds are an abstraction of curved spaces possessing
a distance function. Unlike curves and surfaces in 3-space, these
manifolds do not necessarily sit inside an ambient space, hence they are
abstract spaces. The research here aims to understand various global
aspects of these manifolds. In particular, the investigator is interested
in ways in which the positive or non-negative curvature of such manifolds
affects their global properties, sometimes in subtle and unexpected ways.
Prominent among these are various symmetry properties, which will be an
important focus of the research of the investigator and his student.
***